Application of Immunology to Carbonate Sedimentology and Paleontology

The research will examine the preservation of the bone matrix protein osteocalcin (referred to below as OC) in fossil bone and the possible use of that protein for immunotaxonomy of fossil vertebrates. This research will constitute the major emphasis of this renewal period. We have found that OC is preserved in fossil bovine and rodent bone at least 18-30 million years old. This occurrence was confirmed both immunologically and biochemically. In addition, we have extracted macromolecules from fossil horse bone (Miohippus, Oligocene (28 million years old), South Dakota) and have elicited reaction with antibodies raised against modern horse OC. The discovery of preserved antigenic determinants and potentially preserved proteins in such ancient materials opens the possibility for molecular paleontology studies of phylogenetic relationships among major groups of extinct organisms, something which is not possible with the usual molecular biological methods applied to modern organisms (mitochondrial DNA restriction enzyme site mapping, etc.) This new research could be of major significance in understanding relationships among fossil vertebrates, including extinct groups. This research is unique in its direct study of macromolecules extracted from fossils, rather than reconstructing phylogenetic relationships from data on modern taxa.